Support for the International Seismological Centre (ISC)

This award funds the International Seismological Centre (ISC) to maintain the world’s most comprehensive database of earthquakes and other seismic events dating back to 1904. The ISC collects seismic observational data from ~150 institutions in ~100 countries. Some contributors to the ISC do not make their data available any other way. As a result, the ISC products contain nearly three times as many earthquakes, with significant additional details, as any other global summary. These data are essential for subsurface imaging studies, understanding plate tectonics, and teaching geophysics. ISC products also support research on seismic hazards, earthquake source physics, earthquake forecasting, and nuclear explosion monitoring, all of which help to mitigate hazards to people and infrastructure worldwide.

This award provides support for the operations of the ISC. ISC produces the ISC Bulletin, a summary of global earthquake hypocenters, magnitudes, and focal mechanisms with corresponding station measurements and links to some original seismic waveforms. This work involves the careful collection, merging, and association of reported parametric event data from seismic monitoring networks and data centers around the world. The ISC manually reviews all events over magnitude ~3.5 that are reported by several networks and performs targeted waveform analyses to obtain additional key source information (event depths, first motion based focal mechanisms, and probabilistic point source models). The ISC Bulletin is distributed openly and mirrored with the Comprehensive Test Ban Treaty Organization and Lawrence Livermore National Laboratory. Under this award, the ISC will maintain several core products that are heavily used by U.S. researchers, including the International Seismograph Station Registry, the International Association of Seismology and Physics of the Earth’s Interior (IASPEI) Reference Event List (GT), the refined ISC-EHB (Engdahl, van der Hilst, Buland methodology) dataset, ISC Event Bibliography, Seismological Dataset Repository, Electronic Archive of Printed Station/Network Bulletins, and Seismological Contacts. Through its work, the ISC provides unique insight into seismic activity in more remote areas of the world, and this baseline assists the nuclear explosion monitoring of the Comprehensive Test Ban Treaty Organization and groups associated with U.S. national security.